Presidential Young Investigator Award: Digital Signal Processing for Communication

This grant provides support to Prof. John Cioffi under the Foundation's Presidential Young Investigator (PYI) program. This research concerns the digital signal processing implementation of communication systems. Specifically much of the work concerns algorithms for adaptive filtering for data transmission. Such adaptive filtering is quite useful for obtaining the highest data rates on the largely unknown but slowly varying environment which is the typical communications line. The adaptive filters slowly track this variation and then alter the transmitted signals so as to maintain maximum thruput. The PYI Awards program provides research support to the Nation's most outstanding and promising young science and engineering faculty. The awards are intended to improve the capability of U. S. academic institutions to respond to the demand for highly qualified science and engineering personnel for academic and industrial research and engineering. This PYI has made significant contributions to his field of engineering and has potential to become a leader in academic research and education. The diary note describes the rigorous selection procedure. A grant award is highly recommended. Dr. Cioffi has obtained the maximum matching funds, so an award of $62500 is recommended.